e+e- Interactions with CLEO III

9972323
Csorna
This proposal requests support for an experimental program to study the decay of B mesons. The data will be taken with the CLEO III detector at the Cornell Electron Storage Ring (CESR) collider. This group contributed to the R&D needed to upgrade the CLEO II detector and to the construction of the new central drift chamber. Current physics analyses using CLEO II data include (a) B meson decays which proceed through both tree and penguin diagrams and thus may violate CP symmetry, e.g. B K* r, and (b) hadronic modes for b u quark decays or B D_s n(p) where the D_s meson comes from the materialization of a virtual W boson. The group proposed the following three new physics analysis topics: (c) A search for a third generation Goldstone boson that is the result of a spontaneously broken symmetry, (d) An inclusive study of B decays to D_s and D*_s with special attention to the endpoint of the spectrum which can yield information on b u decay, and (e) Search for the semi-inclusive decay B f X_s, which is a pure penguin diagram process.